Traditional Ecological Knowledge of Beluga Whales: An Indigenous Knowledge Pilot Project in the Chukchi and Northern Bering Seas

ABSTRACT OPP-9422070 HUNTINGTON This research project will document traditional ecological wisdom of beluga whales in native villages in NW Alaska, and in Chukotka, Russia. The objectives are to gather information on the natural history of beluga whales, including aspects of human use and interaction. A primary focus will be to examine patterns and changes over time, providing a temporal depth that is unavailable in the scientific literature. While traditional knowledge is often discussed, little research of this kind has been done in Alaska and Chukotka. This is also a pilot project of the Arctic Environmental Protection Strategy and is intended to demonstrate how indigenous knowledge can be documented and incorporated into this and other management and conservation programs. ??